Undergraduate Laboratory for Remote Sensing, Digital Image Processing, Automated Cartography and Geographic InformationSystems

This project involves the establishment of a laboratory at Hunter College, part of the City University of New York, within the department of Geology and Geography. The project will integrate an existing program in remote sensing and image processing with related new and existing classes in geographic information systems and analytical cartography. This goal will be achieved by the establishment of a new laboratory containing four IBM-PC AT-based Earth Resources Data Analysis Systems, with associated geographic data processing modules, and the PMAP geographic information system software. When integrated with existing and new department computer hardware and software, this facility will offer a state-of-the-art instructional environment for the laboratory component of three separate but related areas of undergraduate coursework. These courses will strengthen an existing undergraduate program in remote sensing by providing a common ground between remote sensing and image processing, analytical and computer cartography, and geographic information systems. The resulting specialization will provide students with advanced undergraduate training for geographic information processing, and will give them experience with a system which is becoming something of an industry standard.